Theoretical Research on Combinatorial Problems in Sparse Matrix Computations

This award provides support for the development of a research plan on algorithmic issues of combinatorial problems in the solution of large sparse symmetric positive definite systems of linear equations. The primary goal is to develop a theoretical research program that addresses issues of interest to the sparse matrix community. Fundamental to the planning activities will be open discussions and seminars between senior researchers in the algorithms community and practitioners in the sparse matrix community. Through these discussions the investigator will determine problems of interest to the sparse matrix community and cast them in theoretical terms. This collaboration will afford the investigator a rare opportunity to create a unique and useful research program.